Noncommutative Geometry Conference 2019

The Noncommutative Geometry Festival 2019 will be held at Washington University in St. Louis from April 29th to May 3rd. This year, the theme of the festival is Noncommutative Geometry and Representation Theory.

The goals of the festival are to highlight some of the most significant recent advances in noncommutative geometry, identify promising new research directions, and acquaint graduate students and postdocs with the most current research in the field. This year, topics will include index theory, hypoelliptic operators, representation theory, and more. More information about the conference can be found in the following website https://sites.google.com/site/ncgwustl/.